Proposal from the University of Minnesota to Join the Purdue University/University of Connecticut/ University of Puerto Rico Center for Pharmaceutical Processing Research (CPPR)

The University of Minnesota-Twin Cities is joining the existing Industry/University Cooperative Research Center (I/UCRC) for Pharmaceutical Processing Research established at Purdue University with affiliated sites at the University of Connecticut and the University of Puerto Rico. The University has established expertise and industrial connections in several areas of pharmaceutical processing. This application stresses the fundamental understanding, at the molecular level, of the effects of processing on critical quality attributes of pharmaceutical products and in minimizing validation requirements through improved process monitoring.